Problems in Analytic Number Theory

A wide variety of problems of multiplicative number theory will be pursued.
The problem of gaps between sums of two squares will be tackled in a new way,
which if successful could be developed into a major new tool for the study of
the coefficients of automorphic functions in short intervals. Sieve methods
will be studied not by {\it ad hoc} choices of sifting functions but rather by
allowing the sieve to reveal where its extremal configurations lie. The goal is
to determine, in all dimensions, the optimal upper and lower bounds. The local
distribution of zeros of the zeta function will be studied by locating optimal
kernels to use in conjunction with pair correlation information.
Statistics relating to the distribution of primes in arithmetic progressions as
one averages over different arithmetic progressions will be determined.

For several decades, Hardy and Littlewood maintained a list of research
problems. Among the problems remaining on their final list is to
derive a better upper bound for the gap between numbers that can be expressed
as a sum of two squares. Here better means simply better than the trivial
bound one obtains by the greedy algorithm. This problem is to be attacked
in a new way, and if the approach is successful, then the method may apply
in greater generality. As was pointed out by Selberg, the problem of sieving efficiently is
fundamentally a problem of linear programming. Existing sieves are
somewhat ad hoc, and in most cases the bound obtained is either not
optimal or at least not known to be optimal. It is proposed to
emphasize the linear programming aspect of the problem, and to identify
extremals, for both the primal and the dual problems. This is to be
done first in the simplest of situations, and then in successively more
challenging ones, so that eventually one will be able to identify
extremals in realistic problems of great interest.